Graph Structures for Discrete Event Simulation

Simulation is potentially the most important computing application in modern scientific and engineering research. There are two broad classifications of simulation models: continuous simulations and discrete event simulations. Continuous simulations are the more popular of the two approaches largely due their explicit mathematical structure in the form of differential or difference equations. While discrete event simulations have some advantages in terms of generality and computational efficiency, they do not yet have an explicit mathematical representation with anywhere near the generality and utility of differential equations. The lack of mathematical structure for discrete event simulations accounts in part for the apparent ad- hoc and complex nature of these models. Discrete event simulations are typically very difficult to program correctly. The ultimate research goal is the development of a mathematical base that will have practical applications in developing and experimenting with discrete event simulation models.